Workshop for Secondary Mathematics Teachers - Content and Methods Using the Computer as an Instructional Tool

This one-year project, which contains strong components in both mathematics content and methodology, will facilitate the use of computers in middle and high school classrooms. Under the direction of the Principal Investigator, ten superior secondary school mathematics teachers will provide an inservice training program to sixty middle and high school mathematics teachers from Utah, southern Idaho, and western Wyoming. During an intensive two-week summer session, these ten teacher-leaders will offer a total of five courses in the structure of the number system, geometry, algebra, probability and statistics, and discrete mathematics. These courses will combine instruction in mathematics content with preparation in the use of materials that employ the microcomputer as a teaching tool. During the academic year, the participants will be visited by the PI and will communicate with each other via an existing computer network that contains hundreds of computer-based classroom activities. The project will demonstrate a cost-effective method of conducting inservice programs through the use of teacher-leaders as instructors. The participants' schools will provide computers, modems, and other support for the computer network, and Weber State College will contribute an amount equal to 10% of the NSF award.